RUI: Chemometric Tools for Characterization of Evolving Chemical Processes

The project of Professor Paul Gemperline of East Carolina University, supported by the Analytical and Surface Chemistry and International Programs, seeks to develop a new class of mathematical modeling techniques. The objective is to extract quantitative chemical composition data from on-line monitoring of chemical reactions with multiple instrument systems. Improved modeling is possible with the combination of intrinsic and extrinsic measurements, such as Raman spectroscopy and on-line calorimetry. The combination should reduce both the number of reference spectra and the frequency of instrument calibrations.

Mixtures of chemicals are common, occurring in industrial chemical production, chemical separations, spatially distributed chemicals on surfaces, and even in protein folding processes. Currently, rapid, automated quantification requires complete sets of reference spectra and frequent instrument calibration. Also, it is difficult to combine the results of two or more instruments into a single report of chemical composition. Professor Gemperline and his students will work closely with several European Union research groups, particularly groups in Spain and the Netherlands.